Probing Fundamental Physics with Cosmological Observations

The PIs propose to concentrate the study in three elements of physics beyond the standard model: non-baryonic dark matter, negative-pressure dark energy in the universe, and cosmic microwave background radiation. The proposed work will focus on producing theories, models, and calculations for comparison with experimental results in order to achieve a coherent picture of the physics, which governs the universe.